Revitalizing Astronomy Laboratories at Smith College

This project is creating an astronomy laboratory facility that introduces modern data acquisition and image processing techniques to introductory and advanced students at Smith College. The facility consists of a professional-grade telescope of modest aperture (16 inches), a solid state (charge coupled device) imaging camera, and computers for telescope control, data acquisition and analysis. This facility makes a dramatic change in the laboratory experiences for students. The facility is the centerpiece for a new set of laboratory courses designed to bring interactive, inquiry-based learning to both non-science and science students, and to introduce them to the excitement and power of digital imaging techniques. This facility will be used each year by over 100 introductory students, 5 to 10 advanced students, and 50 high school girls participating in the Smith Summer Science Program.